Individual: Presidential Award for Mentoring

Su-Seng Pang
Louisiana State University (LSU)/Southern University (SU)
HRD-9814716
In addition to his research and teaching responsibilities as a Professor at LSU and as an adjunct Professor at SU, Dr. Pang advises and supports at least 30 minority undergraduate engineering/science students per year. He is also a leader in the State of Louisiana in supervising engineering/science minority Ph.D. students. Current mentees include three African American doctoral students. Former mentees include four doctoral degree recipients, one of whom recently joined the SU faculty. Dr. Pang is one of the State leaders among university faculty members promoting mathematics and science for middle and high school students.